Embedding Chemistry Problems in Calculus Courses

Mathematical Science (21). In this project investigators are developing a collection of elementary and intermediate exercises in the mathematics of chemistry. The development process is aligned with the natural sequence of mathematical topics that arise in first and second year calculus. These topics are being associated with a family of functions and differential equations needed in general chemistry and physical chemistry, covering ideas such as enthalpy, entropy, free energy, fugacity, etc. The target audience is students enrolling in the standard science-engineering-mathematics version of calculus.